Mathematical Sciences: Local Hyperchannel Superworkstation-Minisupercomputer Interconnect for Fluid Mechanical Studies

The Department of Applied and Computational Mathematics at Princeton University will purchase a high-speed communication channel which will be dedicated to support research in the mathematical sciences. The equipment will be used for computational hydrodynamics and computational turbulence studies.